The Physics of Simple Metal Surfaces and Thin Films

This project focuses on the physics of metal surfaces and thin films. The collective and dynamical properties of electrons in surfaces and thin films are studied by a range of surface physics techniques, including photo electron spectroscopy, LEED, and inelastic electron scattering. The research provides some of the best current tests of theories of the electronic structures of metal. The work also tests theories of electron spectroscopy lineshapes, and their relation to electronic structure. The inelastic scattering experiments address dynamical properties, such as plasmon excitations of electrons in metals.